Acquisition of a 2,500-Kip Testing System for High-Strength Construction Materials

9504119 Hsu In recent years there have been rapid advances in improving the strengths of construction materials such as Portland cement concrete, polymer concrete, and fiber reinforced plastics/composites. Experimental testing of specimens made from such high strength materials requires loads that significantly exceed the 400-kip capacity of existing equipment now available at the University of Houston. The College of Engineering currently has as strong research programs in high-strength materials involving several faculty members and students from Civil and Environmental Engineering and Mechanical Engineering. This system will allow researchers to obtain load-deformation relationships, and will have deformation-control capability. It will enable research efforts beyond the current limits of existing equipment, which is important for understanding the safety and reliability of large composite structures.